Undergraduate Research in Ecology and Behavior

This award provides funds to the Department of Environmental, Population and Organismic Biology at the University of Colarado at Bolder to establish a Research Experience for Undergraduates SITE in ecology and behavior. The program will provide undergraduates contemplating a career in the biological sciences with 1) an introduction to current research in the areas of soil ecology, plant and insect ecology, plant physiology, and behavioral ecology; 2) the opportunity to conduct original research in a supportive, interactive environment; and 3) instruction in the planning, execution, and interpretation of research in the areas of ecology and behavior. All participating students will attend weekly meetings that will introduce them to the fields of ecology and behavior, aid in planning and executing an original research project, and provide advice on applying to graduate school. They will also present the results of their research in a short seminar at the end of the summer. Students will work with faculty members on their projects, and will also be able to interact with other students and post-docs in their laboratories.